REU: The Kinetics of Organic Matter Diagenesis: Control byBiomass Dynamics or Polymer Lability

Although microorganisms have often been considered the catalysts of organic matter mineralization in sediments, little consideration has been given to the relative significance of microbial biomass, either from a static or dynamic perspective. In fact, microbial biomass is regarded as a negligible or inconsequential component of total sediment organic matter. This view has not been substantiated and may well be incorrect. Several lines of experimental evidence suggest that biomass may have been previously underestimated, that biomass and biosynthesis may be significant compared to annual organic inputs, and that to a large extent, sedimentary organic matter may be an intermediate or endproduct of biomass formed during the mineralization of inputs from phytoplanktonic or other sources. This view is substantially different from accepted dogma which treats mineralization solely as a function of the lability of different fractions of a the original algal detritus inputs. This lability hypothesis will be tested by determining 1) the kinetics of downcore mineralization and 2) the extent of organic burial or preservation.